1998 Solid State Chemistry Gordon Conference; New London, NH; July 26-30, 1998

9805437 Storm Research in solid state and materials chemistry is undergoing tremendous growth while at the same time the character of the research is changing due in large part from the need to explore new classes of technologically important materials made possible by the advent of new solid state synthetic strategies. This meeting will bring together experts in the field of solid state chemistry to inform a broad range of inorganic, solid state and materials chemists about the latest advances in this field to include new synthetic tools involving high pressure, supercritical fluids, and crystal engineering for the preparation of novel materials such as porous modular solids, composites, perovskites, complex arsenides and antimonides, sulfides and phosphides. %%% New materials classes of high technological importance are emerging at a rapid rate due in large part to the development of new solid state synthetic strategies that provide new materials exhibiting a wide range of interesting properties such as thermoelectric, dielectric, ferroelectric, and colossal magnetoresistance. These approaches have recently been used by industrial firms searching for new materials for diverse applications such as batteries, fuel cells, detectors, and refrigeration. ***